Elementary Particle Physics

***
9804047
Webster
In this proposal, a group of researchers from Vanderbilt University request funds to participate in experimental programs at Fermilab directed to the study of heavy quarks, specifically the b and c quarks. These experiments, FOCUS now and BTEV in the future, will investigate the symmetry violation between matter and anti-matter known as CP.
***